CAREER: Micro/Nano-Fabrication of Conjugated Polymers

9501716 Collard Demand for smaller, more versatile electronic and opto-electronic devices continues to grow in order to increase packing density, efficiency and operational speed. The search for smaller and smaller devices has now reached the final frontier, the molecular scale. Further reduction in device size must occur at a level which addresses ensembles of molecules, or, more intriguing, discrete molecules. Through the use of scanning probe microscopic techniques and with novel molecular building blocks of pi-conjugated polymers that have already been synthesized, we propose to create defined, robust, and functional nanostructures which will test the limits of ultraminiaturization. This approach relies on the modification of substrates with monolayers of monomers that serve as templates for polymer deposition. The research program will provide insight into approaches for integration and nanofabrication of various electronic materials and will furnish materials and methods that provide precise control over the interfacial behavior of composite systems relevant to the electronics industry. %%% In the long term, organic nano-architectures promise great flexibility in the design of microcircuitry elements and quantum wave devices. The key issues to be addressed in this research include: What materials can be used to fabricate micro- and nanostructures; how can nanoscale features be produced; what are the limits of feature dimensions, and what are the stability and properties of these features? We are currently involved in a number of programs at Georgia Tech and in the Atlanta area to increase the involvement of students in technical education, including programs for minorities, women, and precollege students. Through an undergraduate outreach program to science museums we are developing illustrative interactive chemistry exhibits, and a vibrant demonstrat ion and workshop program. Curriculum development activities include development of an advanced organic chemistry course based almost entirely on problem solving, introduction of a polymer chemistry course, and development of interdisciplinary laboratory experiments. ***